Riometry in Antarctica and Conjugate Regions

Abstract 9505823 Rosenberg The University of Maryland will continue their studies of the high magnetic latitude ionosphere and magnetosphere using galactic radio noise absorption techniques (riometry). Several years ago, they developed a new imaging riometer (IRIS) which allows the study of auroral morphology during daylight and through clouds. These imaging riometers are now being operated at Iqaluit, Canada; Sondestromfjord, Greenland; South Pole, McMurdo and in all six of the Automatic Geophysical Observatories (AGO) operated by NSF in Antarctica. Additionally, they are operating broad beam riometers at Iqaluit, McMurdo and South Pole as well as auroral photometers at McMurdo and South Pole. They have also provided imaging riometers for the British Halley Bay and the Australian Davis stations, both in Antarctica, thus considerably extending coverage. In the next few years they will also build imaging riometers systems for some of the British AGOs. The instruments work synergistically with a number of other instruments which are operated at all of these sites by other investigators. ***